Engineering for All (EfA)

The Engineering for All project creates, tests and revises two-six week prototypical modules for middle school technology education classes, using the unifying themes and important social contexts of food and water. The modules employ engineering design as the core pedagogy and integrate content and practices from the standards for college and career readiness. Embedded assessments are developed and tested to make student learning visible to both teachers and students. Professional development for a limited group of teachers is used to increase their knowledge of engineering design and to test instruments being developed to measure (a) student and teacher capacity to employ informed design practices and (b) teacher design pedagogical content knowledge.

The project leadership is experienced at creating materials for engineering and technology and in providing professional development for teachers. The assessments and instruments are created by educational researchers. The advisory board includes engineers, science and engineering educators, and educational researchers to guide the development of the modules, the assessments and the instruments. An external evaluator reviews the protocols and their implementation.

This project has the potential to provide exemplary materials and assessments for engineering/technology education that address standards, change teacher practice, and increase the capacity of the engineering/technology education community to do research.